Mechanics and Material Interactions of Rolling and Sliding Contact Plasticity

Previous work done on this program under NSF grant DMR-8418097 dealt with the analysis of rolling contact deformation and fracture in steels and other materials. The investigation combined elasto-plastic finite element and cyclic plasticity analyses using a fracture mechanics approach. The studies provided, for the first time, two-dimensional and three- dimensional analyses based on cyclic constitutive relationships for pure rolling and rolling/sliding friction contact. The ongoing work seeks to more completely integrate the mechanics and materials elements of the contact problem. Two aspects of this problem will be emphasized: one is the analysis of the idealized macrocontact; the other is the "near surface" effects produced by microasperities, lubrication pressure spikes and frictional heating. This approach can accommodate realistic descriptions of material behavior and should lead to meaningful estimates of the contact distortions, cyclic plastic flow and residual stresses.